A Liquid Sodium Laboratory Model of the Earth

9903162
Lathrop

This project seeks to understand magnetic field generation
by the flow of liquid metals (dynamo action) through carefully
controlled experiments in liquid sodium. The goal is to better
characterize and to better understand the dynamo theory that
seeks to explain magnetic field generation for the Earth and
other astrophysical bodies. The research plan is to continue
work on two existing sodium experiments, while constructing
and exploring a new rotating convection experiment. This new
experiment consists of a rotating inner and outer spherical
boundary with convecting liquid sodium in between.
Additionally, the investigators will undertake a direct comparison between
these experiments and numerical simulations to be performed by
Gary Glatzmaier at the University of California, Santa Cruz.
These comparisons will afford a direct test of the model
assumptions used in modern simulations of the earth's outer core.